International Conference on the Applications of Diamond Films and Related Materials to be held in Auburn, Alabama on August 20-22, 1991

Partial support is provided for a conference on the application of diamond films and related materials in tribological applications, for use as coatings on cutting tools and for optical and electronic uses. The conference will address the apparent gap between process development for these technologically promising films and their application.